National Alliance of Presidential Awardees Association Conference

Flynn 9800505 The Education Development Center (EDC) proposes an inaugural conference on behalf of the National Alliance of Presidential Awardees Associations (NAPAA). The conference will set an agenda for the organizations' active role in mathematics and science education reform. The conference will involve Awardee representatives from every regional of the country and support development of a handbook of guidelines for Presidentail Awardees' work as advocates and mentors. The conference will give NAPAA national visibility and promote strategies for using Awardees as resources for reform.